Mathematical Sciences: RUI: Geometry

Frank Morgan will continue his studies of the behavior and structure of m-dimensional area minimizing surfaces. Soap films are the prototypical examples of such surfaces. Much current work is directed towards the study of their singularities. Singularities occur at points where there is no well defined tangent plane. Work of Almgren has established upper bounds on the sizes of the singularity sets, but so far little is known about their structure. In particular they may even turn out to have fractional dimension. Morgan will involve undergraduate students in these investigations and thereby expose them to the excitement of modern mathematical research. They will be involved in various computational and experimental aspects of the work. Morgan will be joined by Colin Adams whose work is of a more topological nature. He will study the cusp volumes of hyperbolic three dimensional manifolds. The techniques to be employed by Morgan belong to geometric measure theory. This is an extremely powerful theory which is accessible to relatively few mathematicians. Morgan will use these methods to study the structure of singularity sets of m dimensional area minimizing currents. In addition he will use calibrations to find further examples of area minimizing surfaces. These are closed differential forms which take extreme values on the tangent spaces of such surfaces. They have recently been used to great effect in the study of submanifolds of Grassmannians.